Molecular Regulation and Transport of Sterols in Plants

Plant sterols represent a complex array of chemical compounds that are
essential for many facets of plant growth and development, and are of
considerable importance for their nutritional contributions to animals and
man. Hence, it is not surprising that the biochemistry and molecular
biology of the sterol biosynthetic pathway has been intensively studied.
Nonetheless, very little is actually known about the regulation of this
biochemical pathway in plants. One goal of our long-term research in sterol
metabolism has been focussed on the regulation of squalene synthase, a key
enzyme in sterol biosynthetic enzyme. Our recent results suggest that
squalene synthase gene expression and enzyme activity are localized to
shoot meristems. In attempting to reconcile these results with those
already reported in the literature, the most logical interpretation is that
sterol biosynthesis itself is localized to this tissue. This interpretation
implies that regulation of sterol biosynthesis occurs in the shoot
meristem, a tissue that has not been evaluated as such before, and that a
sterol transport system for the movement of sterol from the apical meristem
throughout the plant must exist. Experiments to test these predictions are
proposed and include: 1, an evaluation if sterol biosynthesis localized to
the shoot meristem is regulated; 2, the development of a test for long
distance transport of sterol within plants; and 3, a determination if NPC1,
a highly conserved protein involved in cholesterol uptake and intracellular
trafficking, plays a similar role in plants as in animals. The proposed
work, which will involve undergraduate and graduate students and a
postdoctoral associate, should provide important insights into how this
pathway might be engineered for enhanced value using emerging technologies.